Complexity of the objects of complex analysis and holomorphic mapping problems

Abstract

Award: DMS-0072197
Principal Investigator: Steven R. Bell

Prof. Bell has shown that the Bergman, Szego, and Poisson kernels
associated to a finitely connected region in the plane are
elementary combinations of only three, and sometimes even two,
analytic functions of one complex variable related to geometric
constructions associated to the domain. Bell will study deeper
questions about complexity in potential theory posed by his
recent findings and he will extend these results to finite
Riemann surfaces. Bell has also formulated a unique continuation
property for the inhomogeneous Cauchy-Riemann equations that he
has shown yields information about the behavior of holomorphic
mappings between domains in complex space. He will attempt to
verify the property on important classes of domains such as the
strictly pseudoconvex domains.

The mathematical objects of potential theory and conformal
mapping are ubiquitous in Science, Mathematics, and Engineering.
They carry encoded within them a vast amount of information about
geometric properties of regions in the plane. Although these
objects are familiar and well studied, they continue to be a
source of interesting and applicable new mathematics. Professor
Bell will express the classical objects of potential theory
associated to a two dimensional region with holes in terms of
much simpler analytic objects. These results will give rise to
new and practical methods for understanding the solutions to many
classical problems in differential equations, conformal mapping,
and potential theory that should be of interest to scientists and
engineers. Bell will explore applications of his ideas to more
complicated constructions in the subject and he and his students
will test the efficacy of the numerical methods stemming from the
work. Because humans best perceive higher dimensional objects by
taking a series of two dimensional slices, the tools developed by
Bell could find many applications.